Water Balance Estimates From Time-Variable Satellite Gravity

0309678
Wahr

Monthly solutions for the Earth's global gravity field,
as provided by
the GRACE satellite mission, will be used to estimate and interpret
month-to-month changes in the vertically-integrated distribution of
liquid water and snow stored on land.
The spherical harmonic coefficients of the gravity
field provided by GRACE will be
used to estimate mass variations averaged over continental regions
on the Earth's surface.
This will involve the construction of
averaging functions that are specially tailored
for those regions.
These variations will be interpreted in
terms of changes in the mass of water stored in those regions.
Among the things that will be estimated and interpreted are:
changes in the total amount of water stored
within large regions (greater
than 200,000 square km);
precipitation minus evaporation averaged
over large
river basins;
changes in snowpack at northern latitudes; and
changes in the total water stored in regions with
large underground aquifers.

This work, which will form the PhD thesis
project of a graduate student,
will be a first step towards integrating time-variable
satellite gravity observations into the hydrological sciences.
These observations constitute a new and innovative data type for hydrology,
with considerable promise for improved understanding
of the global water cycle.